Pacific Northwest Geometry Seminar

Abstract

Award: DMS-0852734
Principal Investigator: James A. Isenberg, Boris I. Botvinnik

This award provides partial support for meetings of the Pacific
Northwest Geometry Seminar (PNGS) to be held during 2009--2012 at
the University of British Columbia, Oregon State University,
University of Oregon, University of Utah, University of
Washington, Portland State University, and Stanford
University. Invited research talks by leading experts in
differential geometry and algebraic geometry are complemented by
discussion sessions in which the speakers and participants assess
the state of various areas in geometry, and highlight open
problems in these areas.

There are a number of very active researchers in geometry
scattered throughout the various universities which are involved
in the Pacific Northwest Geometry Seminar. These periodic
meetings bring these researchers together for consultation,
collaboration, and stimulation of new ideas. A significant number
of research programs have been initiated as a result of
interactions at these meetings. The PNGS is especially valuable
for graduate students in geometry at the various participating
universities which have small geometry groups. The PNGS meetings
give these students an excellent opportunity to see the broader
picture of research in geometry. The meetings are also very
valuable for the growing number of geometers working at some of
the smaller universities in the region, such as Pacific
University, Lewis and Clark, Seattle University, and Idaho
State. More information can be found on the conference website
located at www.math.washington.edu/~lee/PNGS